CISE Research Instrumentation

A hypercube computer will be provided for researchers at Michigan Technological University for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of: Implementing parallel virtual memory for executable code Performance analysis of parallelization/vectorization tradeoffs Performance analysis of circuit-based communication algorithm; and Design and implementation of graphical event description for debugging